CICNet Interregional Connectivity

9320913 Staman This award assists the regional network, CICNet, in obtaining connectivity to other regional networks in the United States and to the rest of the Internet. The award made under the guidelines published in the NSF Program Solicitation 93-52, partially funds one T-3 connection over and anticipated duration of 4 years.